Mathematical Sciences: Mills College Summer Mathematics Institute, 1991

Mills College will develop and operate a 6-week program for 24 women undergraduates, selected nationwide, which will provide them with an intensive immersion in mathematics designed to motivate them, and strengthen their preparation, for entrance into a mathematics Ph.D. program after graduation. The program will also broaden and strengthen the efforts of the nation's mathematics faculty to encourage more women to major in mathematics and to direct the most promising ones toward graduate school. The program will also encourage participating students to serve as leaders in mathematical activities among their peers at their own institution. Finally, data will be gathered and analyzed with a view to clarifying the reasons why many fewer women mathematics majors than men now go on to Ph.D. programs in mathematics.